Textures and Duality: Many-Body Physics in the Quantum Hall Regime

9632690 Sondhi This grant supports work by a beginning assistant professor at Princeton University. The proposed work involves study of various aspects of quantum hall effect. These include spin textures (skyrmions) in quantum Hall effect and other itinerant ferromagnets and an analysis of symmetries and dissipation near quantum critical points. The latter has been stimulated by the observation of symmetries of the nonlinear response in quantum Hall experiments. Finally, there are plans to provide theoretical support to local experimental groups studying quantum Hall effect in 2-d electron gases and also in quasi 2-d Bechgaard salts. %%% Last decade has seen an explosion of activity in quantum Hall effect, a novel state of electrons in very high magnetic fields. In spite of certain superficial similarities to a superconductor, another anomalous state for electrons, this state is fundamentally different. The PI, a beginning assistant professor at Princeton, has been a pioneer in the theory of this field, in introducing some novel magnetic defects and related phenomena for dissipation. He will further advance this work. He is also proposing a theory-experimental collaboration with his colleagues at Princeton to explore new opportunities. ***